Minority Student Support

This award is made to the Chairperson, Department of Geology, University of New Mexico, 87131, to support the graduate work of Judith A. Lopas, while Ms. Lopas is a student in good standing at the University of New Mexico. The funds are to be managed by the P.I., and NSF intends to support the student for up to three years, provided the Chairperson acknowledges satisfactory progress toward a degree in annual reports to NSF.